ITR: Inference in AI, Verification, and Theory: A Unified Approach

The problem of developing efficient automated systems of logical
inference is a key step toward the dream of creating verifiable,
reliable, and secure hardware and software systems. This research is
aimed at developing a well-founded, unified theory of practical
logical inference, that combines complementary ideas and powerful
approaches for propositional inference developed in AI, formal
verification, and theoretical computer science.

This unified theory will focus on (ii) combining the different
representations used in the various approaches to propositional
inference, such as Boolean decision diagrams and conjunctive normal
form, in order to take advantage of the diverse algorithmic techniques
associated with each; (ii) developing new and improved inference
algorithms using the combined representation; (iii) precisely
characterizing the power of various heuristic inference techniques,
such as clause learning and randomized search; and (iv) developing a
rigorous understanding of how problem structure indicates the
potential effectiveness of particular inference strategies.

The research will involve theoretical work using methods of proof
complexity as well as experimental work on logical encodings of both
real-world verification problems and AI planning problems. The
ultimate goal research is to significantly expand the size and
complexity of software and hardware systems that are amenable to
formal analysis.